Industry/University Cooperative Research Center for SoftwareEngineering

This supplement funds the first year of a three-year continuing award for a "Self-Sufficient Partnership for Research" for the University of Florida's portion of the Industry/University Cooperative Research Center for Software Engineering. This Center has met all the requirements for this program. Funding is also provided for the first year of a three-year award for evaluation and industry/university interaction studies within the Center. The Program Manager recommends the University of Florida be awarded $15,000 for the first year of a three-year continuing award for the "Self-Sufficient Partnership for Research", and $10,000 for the evaluation function.